Mathematical Modeling of Combustion Phenomena at the Microscale

Matalon
0708588

The objective of the project is to enhance physical
understanding of the intricate processes occurring in combustion
at the microscale, in order to support and guide ongoing
experimental efforts in this area. Mathematically, the problems
require finding solutions to coupled, highly nonlinear partial
differential equations, further complicated by inevitable
temporal variations, multi-scale processes, and nontrivial
boundaries. Tractable problems require judicious modeling
efforts in order to capture the main features of the phenomena
under consideration. The simplified models are addressed using
appropriate analytical or numerical strategies in order to
provide solutions that enable comparing the theoretical
predictions with experimental observations. The investigator
examines two sets of problems. The first set is associated with
premixed combustion in an excess-enthalpy combustor where the hot
combustion products are recirculated to heat up the fresh
reactants, thus enhancing the burning rate and heat output. The
second set of problems is associated with nonpremixed combustion
in a confined slot, where the mixing zone and the resulting
diffusion flame spread over the entire length of the reactor
channel. The goal is to study the structure, properties and
dynamics of flames in such configurations and identify conditions
for steady burning, onset of instabilities, flashback or blowoff,
and flame extinguishment.

Combustion is a subject of great economical and societal
concern. Despite the continuing search for alternative energy
sources, combustion still provides the majority of the energy
consumed today. It is therefore important to ensure that
combustion processes are utilized in the most efficient way, and
in such a way as to minimize undesirable effects on the
environment. Recent development in the field of microscale
combustion has been motivated by the increased need for smaller
scale and high density power sources and by the fact that
hydrocarbon fuels have enormous advantages over batteries in
terms of energy storage per unit mass. There are, however,
important issues that need to be addressed in order to render
this technology practical and efficient. Beyond the difficulties
associated with fabrication, fundamental questions concerned with
the underlying combustion physics need to be overcome. The
development of combustion systems at the microscale requires
deeper understanding at the fundamental level of fluid flow in
microchannels, heat and mass transport at the small scale,
combustion in small volumes and complex geometries, thermal and
chemical properties of the wall materials, and fluid-wall
interactions. Mathematical modeling plays an important role
towards this goal; it provides means to explain experimental
observations and identify the physical mechanisms responsible for
these observations. The investigator, building on his earlier
contributions to fluid mechanics and chemically reacting flows,
studies the peculiarities of combustion at the microscale in
order to improve physical understanding of these phenomena. By
guiding and supporting the ongoing experimental efforts the
project has an immediate effect on advancements of this new
technology.